Experiments on Magnetic States of Liquid Helium-Three

Experiments to study magnetohydrodynamics of nonlinear superflows in Al phase of 3He, varying temperature, magnetic field, pressure and boundary effects. Another experiment will force superfluid through a "magnetic spin filter" to increase the polarization, and then characterize the fluids' viscosity to compare with recent theory. Second sound will be used to measure the thermal conductivity of 3He superfluid. Another experiment will measure attenuation of fourth sound with the boundary conditions altered by a 4He coating.